EFRI 2-DARE: From Atoms to Devices: Pathways to Atomic Layer Optoelectronics via Multi-Scale Imaging and Spectroscopy

EFMA - 1542747
PI: Li, Xiaoqin

Two-dimensional atomic layers are versatile building blocks for forming novel optoelectronic devices. The goals of this project are to synthesize high-quality, atomically thin material layers using several techniques, measure the properties of the layers using several spectroscopic methods, and assemble the layers to form a variety of prototype optoelectronic devices. The project will explore how two-dimensional layered materials can be integrated into current silicon-based technology, which could result in innovative devices and improvements in existing devices. Calculations will be carried out to predict material properties and guide device development. The project will generate a database of material properties for atomic layer materials that will be made available to other researchers and practitioners in the field. The investigators will use the project as a platform to provide new research opportunities at their institutions and at surrounding institutions, including community colleges. In addition, they will develop a new course for graduate students titled "Frontier in Optoelectronics based on Atomically Thin Materials: Device and Material Science."

The goals of this project are to demonstrate a few novel optoelectronic devices made possible by two-dimensional materials and to systematically improve their performance through a synergistic effort on device fabrication and testing, calculations, material synthesis, and characterization. The project includes the following coordinated activities: (i) design, fabricate, and test prototypical devices that include injection lasers, photodetectors, and single photon sources; (ii) synthesize high quality atomically thin materials and heterojunctions using molecular beam epitaxy, chemical vapor deposition, and layer transfer techniques; (iii) guide device development and predict material properties using first-principles calculations; and (iv) characterize materials properties using a wide range of imaging and spectroscopy tools with atomic to mesoscopic spatial resolution and ultrafast temporal resolution using scanning tunneling microscopy and spectroscopy, microwave impedance microscopy and ultrafast optical spectroscopy. The project aims to address important challenges in device fabrication, including overcoming the thin interaction region in optoelectronic devices, limiting defect density during growth, and understanding how defects, doping, stacking and photonic cavities change band structure, transport and optical properties of two-dimensional materials.